Workshop for Identification and Prioritization of Basic and Generic Research Opportunities with the Life Cycle of Concurrent Engineering Designs; Austin, TX; October, 1990

Approximately seventy leading experts from the United States and other nations will gather at the Innovation, Creativity and Capital Institute, at the University of Texas at Austin for a two-day meeting to identify and prioritize basic and generic research opportunities dealing with the life cycle of concurrent engineering design. Concurrent engineering has been defined as a systematic approach to the integrated design of products and their related processes. Engineers utilizing concurrent design techniques consider all strategic elements of the product life cycle from conception through disposal. Concurrent engineering design is a particularly timely subject for an international workshop because of its implications for increasing the competitiveness of U.S. industry. Concurrent design leads to shortened lead times in introducing producible and maintainable products and reduced total costs of doing business.